Collaborative Research: RI: Bridging the gap between deep reinforcement learning and imperfect-information games: sound policy gradient methods, search, and testbeds

Imperfect-information games, situations where decision makers must act without full knowledge of what others know, are ubiquitous in the real world. From autonomous driving to markets to strategic negotiations, people and machines must make high-stakes decisions while reasoning about information they cannot see. This setting remains an open challenge for AI techniques. While systems have reached remarkable, often superhuman, performance in fully observable domains such as chess and Go, the deep reinforcement learning methods behind those successes have proven difficult to apply once information is hidden. This collaborative project develops simple, scalable, and theoretically sound methods that bring the power of modern reinforcement learning to imperfect-information games, paving the way for more capable autonomous agents across these domains.

This project aims to address a long-standing gap between deep reinforcement learning and imperfect-information games. The project develops simple and scalable methods that retain the practical strengths of modern reinforcement learning while adding the theoretical safeguards needed for hidden-information settings. The work has three main components: developing sound policy-gradient algorithms for imperfect-information games; designing decision-time planning methods that can reason about hidden information without enumerating all possible hidden states; and building open-source benchmarks and software for reliable evaluation. The resulting algorithms, code, and educational materials will be publicly disseminated to support future research and help train students to build more reliable AI systems for strategic decision making under uncertainty and imperfect information.